Experimental Particle Physics Research Program at the Columbia University Physics Department Nevis Laboratories

*** 9512810 Shaevitz These researchers at Columbia University request support for ongoing programs at the ZEUS experiment at HERA; the DO and NuTeV experiments at Fermilab; and the HIRES experiment at Dugway, Utah. In addition, support is requested for detector R&D at Columbia's Nevis Laboratories, directed toward the ATLAS experiment at the LHC. ***